Particle Packing Problems

Torquato
0804431

The investigator and his colleagues study a variety of
packing problems. The following five general areas are explored:
(1) identification and characterization of dense packings of
nonspherical particles for a wide class shapes in two and three
space dimensions; (2) study of sphere packings of maximal density
in high Euclidean dimensions; (3) identification of low-density
jammed sphere packings in various dimensions; (4) studies of
jamming on the unit sphere in arbitrary dimensions; and (5)
pursuit of improved order metrics to characterize the degree of
randomness in a packing. Important scientific advances and
outcomes are likely to emerge from the proposed research. This
very multidisciplinary project joins the applied mathematics,
statistical and condensed-matter physics, materials science,
engineering, and pure mathematics communities. Unifying these
different perspectives and goals is a challenging task, but one
that offers great rewards to the scientific community in general.

Packing problems, such as how densely solid objects fill
space, have fascinated people since the dawn of civilization, and
continue to intrigue scientists because of their connection to a
host of problems that arise in the physical sciences,
mathematics, engineering, and biology. While optimal packing
problems are intimately related to solid states of condensed
matter, disordered sphere packings have been employed to model
the glassy state of matter. Sphere packings in high dimensions
have relevance in communications theory. The way that viruses
package DNA in protein containers is a packing problem. What are
the densest packings of spheres in dimension greater than three?
What are the densest packings of nonspherical objects in two and
three dimensions? Can random packings ever fill space more
densely than ordered packings (implying disordered or "glassy"
ground states)? Can "randomness" of a packing be quantified in a
meaningful and precise manner? A greater understanding of
packing problems has implications for the synthesis of novel
materials, our ability to efficiently design communications
channels to send digital signals over large distances, and the
design of new drugs, just to mention a few examples.